NER: Electrochemiluminescence as a Tool for Microscopy at the Nanoscale

Electrochemiluminescence as a tool for microscopy at the nanoscale.

A team of University of California--Irvine engineers, led by Professor
James Brody and Professor Peter Burke, will construct a prototype of a
new nanoscale microscope. This microscope will combine two very
different technologies; one developed to manufacture
microprocessors and the other to analyze blood.

The pilot nanoscale microscope will measure the motion of tiny
micro-spheres in water. An electronic signal applied to a series of
electrodes will cause a chemical tag attached to the micro-spheres to
emit red light. This red light will be correlated with the applied
electronic signal to sense the motion of the micro-spheres.

This project leverages the considerable research and development
investment by industry to develop a revolutionary method for
nano-scale imaging. This imaging method will allow one to see some
objects as they have never seen before. Furthermore, finer and finer
detail will be observable as industry is able to produce more powerful
microprocessors.